Variability of Accreting Magnetized Stars

AST 0507760
Marina Romanova
Cornell University
Variability of Accreting Magnetized Stars
ABSTRACT
Newly developed numerical methods will be applied to problems of disk interactions with
magnetized stars. Specifically, 3-dimensional models of disk-magnetosphere interactions will be
generated using numerical codes based on an inflated cube grid. The simulations will be used to
help link observational data with underlying physics. The goal is to help understand the nature of
the variability of different types of magnetized stars (Classical T Tauri stars, cataclysmic variables,
and accreting neutron stars). With this in mind, four different activities will be undertaken: (1)
simulations will be run with parameters as close to observational constraints as possible; (2)
different mechanisms of variability and quasi-variability which follow from 2-dimensional and 3-
dimensional numerical modeling will be investigated; (3) the light-curves from the modeled
magnetized stars will be calculated and analyzed to determine the origin of different peaks in the
power spectra; and (4) a program will be developed which will search for the best match between
observed and modeled light curves.
Included is the training of graduate and undergraduate students in complex magnetohydrodynamic
physics as well as advanced programming and modeling techniques. The results obtained here will
be disseminated to the public through an education/public outreach program at the local Science
Museum and through a Virtual Reality outreach program to school children and educators.